Vibrational Normal Modes of F-Actin: A Study on Inherent Filament Flexibility

9316109 Tirion F-actin is composed of multiple copies of a globular protein subunit, g-actin, assembled in a helical fashion. We have examined the low-amplitude oscillations, or normal modes, of this monomer complexed with a nucleotide (ADP) and a cation (Ca+ +). A video animation of the computed oscillations of the monomer shows the slowest modes to correspond to collective motions of domains; a propeller-type twisting and a scissor-style opening-and-closing of the large and small domains, as well as a rolling motion about a stationary helix and a puckering movement in the large domain. With a quantitative description of the inherent flexibility of the monomer, and an atomic model of the structure of f-actin, we propose to compute the natural, low-amplitude, oscillations of the f-actin filament. To this end, the normal modes of the monomer will serve as generalized coordinates of motion, similar to the dihedral coordinates of motion in the description of the modes of the monomer. The computation will allow us to study the nature of coherent motions along the filament; to estimate the apparent angular disorder, the amount of lateral slipping, and the importance of internal hinges (the modes of the monomer) in transmitting structural information along the f-actin helix. By refining the parameterization for the intermonomer (non-covalent) bonds, we will study the contribution of the DNase I loop, and subdomain 2 generally, to the stability and rigidity of the filament. The developed computational techniques will be useful for studying the flexibility of other polymers, such as E. Coli RecA, tubulin and DNA. %%% Biological macromolecules, such as proteins, exhibit a rich repertoire of inherent flexibility; motions necessary for these systems to perform their catalytic and enzymatic activities. Due to the small sizes of these systems (on the order nanometers), and the very fast time-scale of the motions (ranging from nanoseconds to picoseconds), structura l fluctuations are difficult to monitor experimentally. We therefore rely on computer simulations and visualizations to describe and understand the motions inherent to macromolecules and macromolecular assemblies. In particular, we will study the natural, low-amplitude oscillations of a large filamentous protein assembly, f-actin. F-actin is an important component of all eukaryotic cells, where it is involved in structural support, cell transport and motility. Atomic, three- dimensional models of f-actin have recently been proposed, which permit a detailed, mechanistic examination of its structural and dynamical characteristics. ***